Organization of the 1993 Compact Blue-Green Lasers Topical Meeting, New Orleans LA, Feb. 2-4, 1993

This award will provide partial travel support for graduate students and a prominent Russian researcher, Prof. E. A. Shcherbakov of the General Physics Institute, Moscow, who will give an invited lecture, to attend the Second Topical Meeting on Compact Blue- Green Lasers, in New Orleans, Louisiana, February 2-4, 1993. This meeting is cosponsored by the OSA and IEEE/LEOS societies. Developments in compact blue-green diode lasers and related nonlinear optical sources will affect a broad range of important technological applications ranging from reprographics to optical-disk data storage and biomedical diagnostics. This meeting is intended to bring together researchers in source development with those in the user community to foster a dialogue in this rapidly expanding field. The research focus of this meeting is central to QEWB program research interests. The graduate students supported on these funds will be asked to provide feedback as to their experience in the form of a two-page letter report that will be forwarded to NSF.